Vibrational Spectroscopy of Ion Solvent Clusters

The Experimental Physical Chemistry Program supports Mitchio Okumura of California Institute of Technology in his continuing studies on anionic cluster solvation. Specifically, he uses vibrational predissociation spectroscopy to study the structure of various anions hydrated with `n` molecules of water, as a function of n. Apparently, experimental studies on cationic hydrate clusters and anions clustered with rare gases indicate that solvation shells form and the ion is in the interior. Theoretical work on halide anionic hydrate clusters suggest, on the other hand, that the ion is bound to the surface of clustered water molecules, and as the cluster size increases, a transition from surface- to interior-solvation occurs. Okumura will focus on the hydrogen stretching region; the frequency shifts and linewidths in this region should yield insight on hydrogen bonding both between ion and solvent molecules and among solvent molecules. In addition, two photon (infrared-infrared double resonance predissociation or infrared-ultraviolet vibrationally assisted photodetachment) spectroscopy will be brought to bear on those clusters that are more strongly bound. Finally, cluster solvation of acids implicated in stratospheric aerosol chemistry will be investigated. An ab initio theoretical effort will be carried out to aid in determining cluster geometries. While the aim of this work is to investigate ion-solvent interactions at a fundamental level, a second motivation is to elucidate solvation processes and ionic reaction mechanisms of relevance to atmospheric chemistry. Many of the systems that will be investigated play central roles in heterogeneous reactions occuring in the stratosphere and troposphere. Adducts of these ionic hydrates with atmospheric species such as nitric acid and hydrochloric acid may serve as models of intermediates in the adsorption and ionic dissociation on atmospheric aerosols.